Arkansas Women in Science

9452959 McCartney ABSTRACT The University Museum at the University of Arkansas is conducting preliminary planning for expansion of their 1994 pilot project entitled "Women in Science." During this planning phase, the staff will meet regularly with experts and teachers to design an exhibit about non-academic female scientists in Arkansas that will travel throughout Arkansas, outline a workshop for teachers that would help them encourage their female students to participate in math and science, and develop a program that enables female scientists to work with groups of students. At the end of the three and a half month planning stage, a final report will present a plan for the exhibition, gender workshop, and scientist program which identifies personnel, gives models/prototypes, and a budget for each facet of the proposed project.